Studies of Hadroproduction of Heavy Flavors at Fermilab

This grant covers experimental Elementary Particle Physics research by a group at the Illinois Institute of Technology in collaboration with other NSF and DOE supported scientists. The group will study, at Fermilab, the production and decay of hadrons containing heavy quarks. The detailed properties of the charmed quark decays established by these measurements constrain the fundamental parameters in the Standard Model of interacting quarks and leptons.